Estimation and Stabilization of Hybrid Systems

This research deals with an important class of stochastic systems, whose dynamic character is undergoing random abrupt changes. These systems are called hybrid systems since they are suitably described in a hybrid space consisting of the usual continuous-valued system state or base state and a finite valued discrete jump state or system mode. The switching of the mode indicates a change of the base state dynamics. For systems with a finite number of modes the optimal estimation problem has computational requirements that are exponentially increasing with the time horizon,i.e., infeasible in practice. While a number of estimation and control algorithms have been developed for this class of problems based on noisy state observations, they relied on heuristic approximations. In view of this, no hard results, like stability of the controlled system, could be proved. Performance evaluation for these algorithms has been done only via Monte Carlo simulations. The investigation we are proposing will consider the following three major problems related to hybrid systems: estimation, control and stability. In the area of estimation there ar several practical algorithms and we shall focus on developing tools for prediction of their performance without recourse to expensive simulations and, in particular, the evaluation of the stability of such algorithms in tracking problems -- a major practical issue in e.g., Air Traffic Control Systems. For controlling such systems there are some algorithms, but, since they were developed using heuristic approximations to the Stochastic Dynamic Programming, one cannot evaluate the stability of the resulting controlled systems. A real-time implementable control algorithm will be obtained using an upper bounding technique in the Stochastic Dynamic Programming. This technique will then be used to show, with a stochastic Lyapunov function, that the resulting closed-loop system is stable.